Heavy Quark Physics at BaBar

This proposal requests support for a group at the University of Cincinnati for a program of research and education in experimental elementary particle physics based on the BaBar experiment at the Stanford Linear Accelerator Center (SLAC). They are also completing the analysis of a hadronic charm production experiment E791 at Fermilab.

The main aim of BaBar is to study the origin of particle-antiparticle asymmetry (CP violation) as seen in the decays of neutral B mesons (B0s) and their antiparticles. The Standard Model of elementary particle interactions predicts such CP asymmetries. The BaBar experiment is designed to detect many of the B decay modes and thus to study the time-dependence of CP violation. In addition to the analysis contributions, the group is also involved with the operations and software development of the DIRC (Detector of Internally Reflected Cherenkov radiation).